Multi-Dimensional Simulations of Core-Collapse Supernovae

AST-0504947
Burrows, Adam
University of Arizona
Multi-Dimensional Simulations of Core-Collapse Supernovae
ABSTRACT
Recently developed fully 2D multi-group, multi-angle radiation/hydrodynamics codes
will be used to investigate the roles of progenitor rotation, aspherical neutrino emissions,
hydrodynamic instabilities, and initial mass on neutrino driven mechanisms of core
collapse supernovae. The need for this work is motivated by the significant uncertainties
in the process by which such supernovae explode (e.g., how is the stalled shock
revived?). Special attention will be paid to the role of rotation and anisotropic neutrino
heating on the viability of the supernova explosion. Beyond this, several other aspects
will also be explored including: resulting iron distributions, the degree of top-bottom
asymmetry, different treatments/coding of the underlying physics, neutrino and
gravitational wave signatures, and pulsar kick mechanisms. The work here will directly
contribute to the training of two graduate students, as well as improve our understanding
of these important and complex events.